RPG: Speed Discrimination for Equiluminary Stimuli Under Stabilized and Free Conditions

The goal of this RPG project is to address the perception of equiluminant motion and to ask how eye movements affect perception. In addition, there will be a test of a model of equiluminant motion which suggests that perceptual processing of equiluminant motion depends both on information in the retinal image and on information concerning eye movements. This work will contribute to the development of basic understanding of motion processing in ways that will allow for more generalized models of human performance, and will help lead to better predictions about human performance and will provide information for the design of displays as well.